Scaling of an Internet Connection to Support Research Applications

This award is made under the high performance connections portion of NCRI's "Connections to the Internet" announcement, NSF 96-64. It provides partial support for two years for a DS-3 connection to the Very High Performance Backbone Network Service (vBNS). Applications include scalable extended computing environments, remote sensing data analysis, brain mapping, automatic target recognition, numerical simulation of nematic liquid crystals, digital cardiography, teleconferencing technology, and virtual reality user interfaces. Collaborating institutions include Cornell Theory Center, Pittsburgh Supercomputer Center, several NASA facilities, Naval Research Laboratory, California Institute of Technology, University of North Carolina and University of Utah.